U.S.-Argentina Cooperative Research: Theoretical Models forRadiation-Enhanced Diffusion During Ion Implantation

This award supports cooperative research in condensed matter theory to be carried out by Diana Farkas of the Virginia Polytechnic Institute and E.J. Savino of the Atomic Energy Commission in Buenos Aires. Theoretical models will be developed for transport mechanisms that occur during ion implantation alloying and ion beam mixing. The collaboration began with concentrating on phenomenological models and it is now proposed to study the particular transport mechanisms that occur during irradiation. Starting with Monte Carlo simulation of collisional mixing, including dynamic compositional changes, the study will proceed to look at segregation effects during implantation due to point defects and investigate ion beam mixing in layered structures. The collaboration has been productive, resulting in several papers in good journals. Both the P.I.'s are recognized as experts in theoretical analysis of radiation effects and impurity defect interactions. The research area has wide application in ceramics and semiconductors as well as in metals and alloys.